Oceanographic Instrumentation for the R/V Endeavor: 2007

0704576
Dickson
This award to University of Rhode Island's Graduate School of Oceanography provides instrumentation to improve the oceanographic research capabilities of the research vessel Endeavor, an NSF-owned ship operated by URI as part of the University-National Oceanographic Laboratory System research fleet. The award includes spare controller and junction box for the institution's Scanfish towed, undulating vehicle, plus new meteorological sensors for the vessel and new sensors for measuring dissolved oxygen in the water column. These improvements will be of substantial advantage to marine scientists using R/V Endeavor and other vessels in their research during 2007 and future years.
***